Introduction of High-Field Nuclear Magnetic Resonance Spectroscopy into the Undergraduate Curriculum

A high-field nuclear magnetic resonance (NMR) spectrometer is a recent acquisition by the Chemistry Department of Furman University. This instrument, used for undergraduate instruction, provides experience with the most important advances in NMR of the past decade: methods for obtaining detailed structural information (high-field NMR); detailed procedures for elaborating that information (2-D NMR); and techniques for assessing the motion of molecules (relaxation measurements). Development of skills in these areas is extremely important in contemporary chemistry, and they provide the basis for NMR imaging, the technique expected to complement medical X-rays. This instrument is being used by students through the entire range of the curriculum from the instrumental analytical course through its use in undergraduate research.